Fundamental Aspects of the Surface Chemistry of Ice

In this project, supported jointly by the Analytical and Surface Chemistry Program and the Atmospheric Chemistry Program, Professor Roberts will study the interaction of small molecules with well-characterized ice surfaces. These ice surfaces will be made by epitaxial growth on platinum single crystal substrates, and characterized by reflection infrared and X-ray photoelectron spectroscopy. The sticking probability, adsorbed structure, and surface reactivity of a number of small molecules relevant to stratospheric ozone chemistry will be examined. Molecules such as hydrochloric acid, hypochlorous acid, and nitric acid will be studied, with a view toward understanding the effects of ice structure, adsorption kinetics, and surface reactions on the production of species important in stratospheric ozone depletion. %%% Reactions occurring on stratospheric ice particles are thought to dominate the chemistry which results in the destruction of ozone in the upper atmosphere. Very little is known about the basic chemistry of the ice surface, and the reactions of relevant small molecules on this surface. This research project will address questions of adsorption and reaction of these small molecules, primarily chlorine source molecules, on well-characterized ice surfaces. Basic information of this type is essential to a complete understanding and eventual remediation of the depletion of ozone in the upper atmosphere.